Early Career: Technician Support for the University of Arizona Center for Environmental Physics and Mineralogy

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5). This grant provides partial salary support for a laboratory technician for the University of Arizona Center for Environmental Physics and Mineralogy (CEPM) over a three year period. The (CEPM) houses analytical equipment for research in environmental physics, mineralogy, and soil science, to provide high quality physical and mineralogical characterization of Earth surface materials and other porous media. The technician’s duties will include management and operation of the CEPM analytical instrumentation, assistance with development of general and specialized measurement protocols and training of undergraduate and graduate Earth and environmental science students in a range of analytical instrumentation. The technician will directly support the research of an early career PI on soil hydraulic properties and the role of soil minerals in sequestering organic carbon and facilitate student training in modern analytical research methods for soils and mineral characterization.